SBIR Phase II: Powder-Powder Mixing and Powder-Liquid Mixing by a Novel High-Intensity Vibrational Mixer

This Small Business Innovation Research (SBIR) Phase II project will enable the development of a high intensity, low frequency resonant-acoustic mixer for industrial uses, focusing on the incorporation of solid powders into liquids. Since there are no mixing blades or moving parts, issues of clean up and cross-contamination are minimized. The work will expand the scientific understanding of powder-liquid mixing in a high intensity resonant acoustic field, and provide an alternative mixing approach for emerging nano-sized materials.

Outcomes of the work will be a deeper understanding of the powder mixing phenomenon and a knowledge base for the design and optimization of complete industrial mixing systems.